U.S.-Taiwan Cooperative Research: The Benchmark Solutions ofRadiative Transfer in Nonhomogeneous Participating Media Using the Integral Equation, YIX, and Monte Carlo Methods

9512131 Hsu This is a two year award proposed by Dr. Pei-Feng Hsu, Florida Institute of Technology and Professor Chih-Yang Wu, National Cheng Kung University. The investigators propose to compare the integral, YIX and Monte Carlo solutions for a rectangular and axisymmetric geometry. Nonhomogeneous distributions are the key element of this study. The objective of this project is to develop benchmark solutions of radiative heat transfer. This proposal requests funds to enable a U.S. Ph.D. graduate student to spend one semester at the National Cheng Kung University in Taiwan to work with Professor C.Y. Wu and for the P.I.'s travel. Benchmark solutions for this system are important in view of increasing trend toward high temperature manufacturing, materials processing and energy production. There is a strong need for computation solutions taking into account the effects of radiation on the total transport phenomena. This project can advance a computation method for estimating radiative transfer and provide opportunities for a U.S. graduate student international experience to research and study at a university in Taiwan for one semester.